KDI: The Internet Learning Forum: Fostering and Sustaining Knowledge Networking to Support A Community of Science and Mathematics Teachers

The proposed project will design and evaluate the salient features of an electronic knowledge
network, the Internet Learning Forum (ILF), to support a virtual community of pre-service and in-service
mathematics and science teachers, allowing them to share and improve pedagogical practices. The ILF
design centers around the vision of a community in which teachers can virtually visit each other's classrooms
to observe and discuss approaches to teaching mathematics and science topics and to share artifacts. The ILF
is meant to support a distributed group of teachers in making the tacit knowledge involved in their teaching
explicit so that it can be shared with others and, in turn, to aid teachers in using that explicit knowledge a tacit part of their practice.

The research goal of this project is to understand the principles for fostering, sustaining, and scaling
communities of practice in which the value to participants of sharing their practice and entering in the
dialogue outweighs the "costs" of participation (e.g., time, technology access; the concerns of letting others
view one's teaching). While the effective use of technology (the ILF) in supporting a community of practice is
a focus of this research, it is clear that technological environments are only one component of an overall
community strategy. Thus, the research looks at the variety of variables that impact the dynamics of the
social networks through which teachers seek to improve and share their pedagogical practices. The intent of
this research will not be to produce abstract measures or scores, but to build a rich story of the historical
development of knowledge, resource use, practices, and community. The research issues converge at the
intersection of pedagogy, technology, social informatics, and learning theory and have important implications
for each. An interdisciplinary approach, reflecting this intersection, will characterize the research carried out to address each of the following categories of issues.
(1) How can networking and electronic technologies be used to represent and facilitate the sharing and
evolution of teaching practices?
(2) What are the taken-as-shared meanings that emerge in the ILF communities and how do those
meanings evolve and diffuse into classroom practices?
(3) How do the ILF members structure themselves into communities and how do we promote boundary
crossing?